Chemical and Biochemical Surface Functionalization of Group IV Materials

Abstract
CHE-0613010
Hamers/Wisconsin

The fundamental mechanisms of the photochemical and electrochemical functionalization of diamond and other carbon material surfaces forms the focus of this research carried out in the Hamers laboratory at the University of Wisconsin-Madison. With the support of the Analytical and Surface Chemistry Program, Professor Hamers and his coworkers are examining methods to integrate biological molecules with microelectronic systems. Photochemical and electrochemical patterning methods are being explored, with the goal of developing robust attachment strategies key to biological sensor applications. Outreach to local students in middle school and high school, and mentoring of research students at all levels is an important broader impact of this work.

Functionalization of semiconductor surfaces with organic and biological molecules is the focus of the research being carried out in the Hamers laboratory with Analytical and Surface Chemistry Program support. Spectroscopic probes and mechanistic studies are being applied to develop an understanding of the photochemical and electrochemical functionalization routes developed in this laboratory. Applications to biological sensors, biocompatible implants, and bioanalytical chemistry are resulting from the fundamental science of this research.